Topical Conference on Microbes at Biomedical Interfaces

As a field in need of new material design (Microbes at Biomedical Interfaces) as well as collaboration between the professionals and young researchers in medicine and engineering, the PI is organizing the Topical Conference on Microbes at Biomedical Interfaces. The Topical Conference on Microbes at Biomedical Interfaces chair is guiding the conference development and is a leader in the field.
Conference Chair: Tagbo Niepa, PhD., University of Pittsburgh